ROLE: The school as a knowing organization - Knowledge management as a strategy for continuous teacher development

Organizations have knowledge. The knowledge is typically dispersed
throughout the organization. Some of it is codified in documents and
policies, some is embodied in projects and strategies, and some is tacitly
held by individuals and small groups. The problem of knowledge management
is that an organization's knowledge is often locally produced, haphazardly
disseminated, and ineffectively indexed. It is inaccessible when and where
it is needed. Knowledge management techniques take a participatory approach
to identifying, codifying, and integrating knowledge resources throughout
the organization. Their objective is to help people make sense of their
organizations, to develop and maintain trust, to make commitments and take
responsibility, to more effectively challenge, negotiate, and learn, and
thereby to improve the quality of the contributions people make to their
organizations.

This project will adapt knowledge management concepts and techniques, and
the information technology they employ, to understand and enhance knowledge
management in school organizations. We will work with school
administrators, but chiefly with teachers. First, we will investigate and
characterize knowledge management practices as they exist today, and
identify needs and opportunities to improve knowledge management. We will
facilitate teacher-initiated development of organizational knowledge
resources, and identify, and accessibly codify the critical knowledge of
the school systems.

We will assess the impact of this intervention on teachers, on the school
system, and on the perception of the school by the community. We will
compare and contrast this analysis and intervention to knowledge management
interventions now becoming typical in business organizations.